Instrumentation for the Neurosciences

Course offerings in the neurosciences at Williams College form the basis of an interdisciplinary Psychobiology Program with content ranging from single cell analysis to the neural basis of learning and memory. From this, a student- initiated interdisciplinary major in the neurosciences has developed. As a part of this unique major, students are required to participate in research and to prepare an Honors thesis. The instrumentation acquired for this project (preamplifiers, digital oscilloscopes and computerscopes) allows students to participate in comprehensive laboratory experiences in the Psychobiology Program and in the neuroscience major. Laboratories in intracellular recording, voltage clamping and evoked potential recording in lower vertebrates and humans expose students to the diverse nature of physiological recording techniques and data analysis, providing a firm background for these students' professional careers.